Postdoctoral Research Fellowship in Biological Informatics for FY-1999

This action funds an NSF Research Postdoctoral Research Fellowship in Biological Informatics for 1999.

The research and training plan is in the area of eukaryotic genetics and is entitled "Gene splicing and altered genetic codes in hypotrichous ciliates." This is a study of codon usage and base composition in hypotrichous ciliates --unicellular eukaryotes with altered nuclear genetic codes. The hypothesis being tested is that certain hypotrichs evolved to translate the "nonsense" that occurs where their genes are spliced together during development. Software is being modified and developed for gene annotation in ciliate genome projects.